Analytical Instrumentation for Environmental Engineering Technology

An organic carbon analyzer and an ion chromatograph are used in the environmental engineering technology program to supplement instruction related to water, wastewater, solid waste, and hazardous waste treatment technology, and assessment of water quality. Laboratory experiments combined with lectures give students a thorough understanding of key environmental problems, the most modern techniques for quantifying them, and the applications and limitations of these techniques.